Kinetics of Structural Transformations in Metal and Ceramic Systems

9817235
Khachaturyan
This theoretical award addresses the problems of evolution of the coherent microstructure formed in phase transformations. The long-term goal is development of virtual prototyping of microstructure evolution for future integration of computer simulation in materials design.

There are two overall objectives. The first is to further develop simulation models with applicability to elastically inhomogeneous anisotropic materials with diffusional and diffusionless phase transformations and with complex crystallography producing multi-variant microstructure. This will require a significant advancement in the theory of elasticity of elastically and structurally inhomogeneous systems, in the theory of phase transformations and in computational techniques.

The second objective is to conduct three dimensional simulations of technologically important systems, the Ni-Al superalloys and the Ti-Al (45-52% Al) alloys. The effect of applied stress and variation of input parameters on the microstructure will be investigated with the goal of finding optimal regimes for maximum slowdown in coarsening kinetics and microstructure control.
%%%
This theoretical award addresses the problems of evolution of the coherent microstructure formed in phase transformations. The long-term goal is development of virtual prototyping of microstructure evolution for future integration of computer simulation in materials design.

There are two overall objectives. The first is to further develop simulation models with applicability to elastically inhomogeneous anisotropic materials with diffusional and diffusionless phase transformations and with complex crystallography producing multi-variant microstructure. This will require a significant advancement in the theory of elasticity of elastically and structurally inhomogeneous systems, in the theory of phase transformations and in computational techniques.

The second objective is to conduct three dimensional simulations of technologically important systems, the Ni-Al superalloys and the Ti-Al (45-52% Al) alloys. The effect of applied stress and variation of input parameters on the microstructure will be investigated with the goal of finding optimal regimes for maximum slowdown in coarsening kinetics and microstructure control.
***